International Mind, Brain and Education Society (IMBES): 2020 Biennial Conference

The International Mind, Brain, and Education Society (IMBES) conference has taken place every 2-3 years since 2007. IMBES aims to facilitate cross-cultural collaboration in biology, education, and the cognitive and developmental sciences. The IMBES meeting is an opportunity for scholars and educators to come together to engage in reciprocal dialogue about research and practice. Researchers investigating learning processes have the opportunity to share results with educators and receive feedback on the translational opportunities for the research. Educators can update their understanding of the cognitive and neural bases of learning and impart their knowledge of efficacious techniques, tools, and classroom practices with researchers. This type of interaction between researchers and practitioners is crucial for generating research that contributes to usable knowledge for education. This conference aims to assess the degree to which scientific ideas are ready for the classroom, consider the extent to which further educational research is still required, evaluate the potential of current research in meaningfully shaping pedagogy, and recognize opportunities to use the classroom to challenge the robustness of research.

This award to Temple University will provide partial support for the International, Mind, Brain, and Education Society (IMBES) conference to be held in Montreal in June 2020. This award will specifically support teacher practitioners from the U.S. to attend the conference and learn more about educational neuroscience and its potential implications for practice. The teacher practitioners will also have opportunities to share with researchers the nature of effective educational practice. The project is supported by the Discovery Research preK-12 program, which supports research and development efforts to improve STEM teaching and learning in the U.S.